Protein Transport by Ligand Gradients

The research deals with protein separations by a new phenomenon, "ligand-induced transport." The protein diffusion across a porous membrane is enhanced by the concentration gradient of a ligand to which the protein binds. The high but different fluxes of different proteins provide the basis for an efficient separation process. In this research six enzymes will be studied, each with two- three ligands. The fluxes will be measured by a new fluorescence spectroscopy technique. The expected results of the research are twofold: (a) to provide a fundamental understanding of protein/ligand interactions; and (b) possibly leads to a new, efficient technique for separation and purification of proteins.